Complete Implementation of a Mathematica Laboratory for Calculus at a Public Metropolitan University

The materials developed at the University of Illinois by Davis, Porta, and Uhl are being adapted and some new materials are being developed to implement a laboratory calculus course. The materials emphasize extensive use of Mathematica programming, especially graphics routines, and conceptual questions that require written responses in paragraph form. The curricular changes emphasize a systematic treatment of the approximation of functions throughout the calculus sequence.